Photoinhibition and the Ecology of Marine Macroalgae

Dr. Osmond and co-investigator Dr. Ramus will characterize the process of photoinihibition (light-dependent inhibition of photosynthesis) in marine macroalgae (seaweeds) using new methods of fluorescence analysis at ambient and liquid nitrogen temperature. These methods will be integrated with conventional analysis of photosynthetic quantum yield and oxygen-flash yield. Marine macroalgae adapted to shallow water (intertidal) and deep water (continental shelf reefs) will provide a comparative base for the study. Seaweeds will be grown in an indoor continuous flow system using a controlled illumination system to establish specific growth rate-incident irradiance relationships. Once the conditions that predispose various marine macroalgae species to photoinhibition are established, the significance of the process to the ecology of marine macroalgae, particularly depth distribution and productivity, will be evaluated.